Origin of Anomalous Sulfur in Volcanic Eruptions: A Study Utilizing the SHRIMP Ion Microprobe

A study is proposed of the microscopic sulfur isotopic variability of sulfide and anhydrite crystals in the eruption products of recent SO2-rich volcanic eruptions (El Chichon, Nevado del Ruiz, Mt. Pinatubo). Anhydrite is now recognized as an important phase in the eruption products of many SO2-rich silicic magmas, but questions still remain about the juvenile vs. xenocrystic nature of the anhydrite and the mechanism of SO2 release from the melt. The answers to these questions require data on the sulfur isotopic composition of anhydrite and sulfide crystals in the eruption products. The SHRIMP is an ideal tool to apply to these problems. Preliminary SHRIMP results rule out formation of all anhydrite in a single-stage magmatic crystallization process. The SHRIMP will be used to assess whether anhydrite is generally of mixed origins in these eruptions. The study will help constrain pre-eruptive magma S chemistry and degassing behavior, as well as resolve whether fortuitous remobilization of pre-existing extraneous sulfur is a critical component of past and present volcanic eruptions which injected significant amounts of climate-altering SO2 into the atmosphere.